Survey and Report of Collegiate Undergraduate Programs in the Mathematical Sciences Fall 1995

SRS 94-21743 Rung This three-year project will support the seventh in a series of surveys sponsored by the Conference Board of the Mathematical Sciences (CBMS), and conducted by the American Mathematical Society (AMS) to gather data on activity in academic departments in the mathematical sciences. The surveys have been conducted at five-year intervals, beginning in 1965. This national survey of two-year and four-year institutions obtains detailed data on undergraduate enrollment, faculty counts and characteristics, and general academic activity. Separate questionnaires are used for four-year and two-year institutions. A stratified random sample of institutions is selected. Data and analysis are presented in a survey report appearing in the Mathematical Association of America (MAA) notes and Reports Series of the MAA, and are further distributed through presentations at professional meetings and special articles. This project will be conducted under the direction of a nine- member committee broadly representative of the academic communities to be surveyed. Parties involved in significant redesign and restructuring of undergraduate education in mathematics will be important contributors to planning for this effort as well.